Dissertation Research: The Roles of Metabolic Adaptation, Allochemical Sequestration, and Invertebrate Predation in the Evolution of Dietary Specialization in a Lepidopteran

Narrow dietary specialization in phytophagous insects has been hypothesized to evolve as a response to hostplant allelochemistry for nearly three decades, but recent investigations have questioned this hypothesis. Genetic studies, in particular, have failed to support the notion of trade-offs in insect performance across plant species upon which the theory is based. While ecological studies which take into account three trophic levels have supported the hypothesis that predators may be a strong selective agent on insect host range, there are currently no genetic studies of hostplant- mediated predation. The research proposed here uses an adapted specialist lepidopteran herbivore, Junonia coenia, which recycles plant allelochemicals as a defense against predators to assess: 1) the responses of invertebrate predators to intraspecific variation in levels of sequestered allelochemicals, 2) the genetic basis of allelochemical tolerance and sequestration, 3) the genetic relationship of oviposition preferences with physiological adaptation and protection from predation, and 4) the interaction of adaptation to hostplant chemistry and the plant's chemical defence. By combining field studies of predation with quantitative genetic analyses of adaption to phytochemistry and predators, this study will integrate these seemingly contradictory single-factor hypotheses. A practical result will be a greater understanding of the biology of plant pests.